EAGER: Nonlinear and Data-Adaptive Compressive Sampling for Big Data Processing

As pervasive sensors continuously collect and record massive amounts of
high-dimensional data from communication, social, and biological networks,
and growing storage as well as processing capacities of modern computers
have provided new and powerful ways to dig into such huge quantities of
information, the need for novel analytic tools to comb through these "big
data" becomes imperative. The objective of this project is to develop a
novel framework for nonlinear, data-adaptive (de)compression algorithms to
learn the latent structure within large-scale, incomplete or corrupted
datasets for compressing and storing only the essential information, for
running analytics in real time, inferring missing pieces of a dataset, and
for reconstructing the original data from their compressed renditions.

The intellectual merit lies in the exploration of the fertile but largely
unexplored areas of manifold learning, nonlinear dimensionality reduction,
and sparsity-aware techniques for compression and recovery of missing and
compromised measurements. Capitalizing on recent advances in machine
learning and signal processing, differential geometry, sparsity, and
dictionary learning are envisioned as key enablers. Effort will be put also
into developing online and distributed (non)linear dimensionality reduction
algorithms to allow for streaming analytics of sequential measurements
using parallel processors.

The broader impact is to contribute to the development of novel
computational methods and tools useful for data inference, cleansing,
forecasting, and collaborative filtering, with direct impact to
statistical signal processing and machine learning applications
to large-scale data analysis, including communication, social, and
biological networks.